ROW: Fish Nests and Aquatic Vegetation: Testing Resource- Based Competition and the Intermediate Disturbance Hypothesis

The roles played by disturbance and competition in providing structure to ecological communities have been heatedly, debated. Contrasting hypotheses of resource-based competition and the intermediate disturbance hypothesis provide a theoretical framework for empirical studies of a variety of ecological communities. In particular, the littoral zone communities of oligotrophic lakes present ideal systems to experimentally address the mechanisms maintaining species coexistence. The submersed aquatic plant community of oligotrophic lakes is dominated by vegetatively propagating perennials. Although widespread in nature, these plants figure in relatively few demographic studies. As such, they represent an important group whose ecology is poorly known. By understanding community processes in less environmentally variable habitats such as oligotrophic lakes, predictive models can be generated for other types of more complex and variable systems. This project concentrates on the ecological processes controlling aquatic plant distributions in oligotrophic lakes in the Pocono Mountains (Pennsylvania). Observational and experimental data will be combined to test hypotheses on the role of macrophyte communities, particularly with regard to fish netting. The pilot work conducted through this project will enable the P.I. to construct a more compelling and developed proposal with which she can compete for federal research support.